Isotropic Multiresolution Analysis in Multi-Dimensions

This proposal addresses the fundamental challenge of creating a theory
that gives rise to directionally unbiased, fast processing of images
and multidimensional data structures. The proposed Isotropic Multiresolution
Analysis (IMRA) enables decompositions of data structures without
orientational preference that parallel the numerical efficiency of one
dimensional MRA-wavelet constructions. A crucial ingredient of this new theory
is an MRA of radial functions based on an innovative concept of radial
translations. Together with a suitable angular resolution, this allows to
replicate all the beneficial characteristics of classical one-dimensional
MRA-wavelets in higher dimensions. Therefore, IMRA-wavelets are expected to
parallel the success of their one-dimensional predecessors in isolating edges
and separating textures. Compared to previous attempts of MRA-construtions
in higher dimensions, IMRAs combine symmetry properties, smoothness, and
compactness of support of scaling functions and wavelets to an unprecedented
degree. The proposed theory is anticipated to have a significant impact on all
areas of digital signal processing in two or more dimensions, especially in
biomedical image processing.

To date, digital image processing systems commonly handle data in a row
and column fashion. Although this pixelized approach is natural for digital
machines, it is much less natural if the objective is to extract information
from natural images or more general multidimensional data structures. In this
proposal, we create a mathematical theory that mimicks features of retinal
processing by mammalian visual systems. Retinal processing is known to detect
edges and textures at different scales of spatial and temporal resolution,
regardless of their orientation and of the topology of their boundary contours.
The proposed theory of Isotropic Multiresolution Analysis (IMRA) offers a way
of digitizing analog signals and of synthesizing analog signals from digital
data in a manner that is more compatible with the "digitization" of natural
images performed by our retina. One particular component of IMRAs is the use of
radial translations, inspired by the evolving wave pattern created when a rock
falls in a pond of calm water. To ensure fast numerical processing
capabilities, we use concepts similar to those in the framework of wavelets,
which have proved computationally efficient in the processing of one-
dimensional signals, e.g. audio. The intellectual merit of this work is that it
delivers directionally unbiased, fast processing capabilities to all areas of
digital signal processing of two or more dimensions, in particular to
biomedical image processing. The Fast Isotropic Wavelet Algorithms resulting
from our theory will be applied to anonymized medical patient data provided to
us by the world renowned Texas Heart Institute (THI) in a joint effort for the
accurate and early detection of the formation of vulnerable plaque in coronary
arteries. The goal of this effort is an accurate non-invasive initial screening
test to assess the risk of mycardial infarcts using CT-scans of the heart.